COLLABORATIVE RESEARCH: RUI: AN INTEGRATIVE PALEONTOLOGICAL AND PALEOENVIRONMENTAL STUDY OF THE MIDDLE CAMBRIAN SPENCE, WHEELER, AND MARJUM SOFT-BODIED FAUNAS

The study of Cambrian soft-bodied faunas has greatly enhanced our understanding of
some key events in metazoan evolution. However, enigmas and incompletely described
Cambrian Burgess Shale-type soft-bodied faunas still remain, as does the question of why and
how Burgess Shale-type preservation occurs. The immediate objectives of the proposed research
for which funding is requested are: 1) to prepare, describe, monograph, and fit into a
phylogenetic and paleobiogeographic framework new taxa from the Middle Cambrian softbodied
faunas of the Spence Member and the Wheeler and Marjum Formations using recent
collections made from Utah; 2) to use microanalytical techniques to determine the taphonomy of
the fossils at the specimen-level; and 3) to place the soft bodied organisms and the taphonomic
processes involved in their preservation into a detailed paleoenvironmental framework using
newly developed microstratigraphic techniques.
The intellectual merit of this research is to address some enigmas in Cambrian
paleontology and geology, allowing multiple objectives to be attained. First, identifying and
characterizing the elements of the Utah faunas will help establish which taxa are shared between
these formations and other Cambrian soft-bodied faunas distributed throughout the globe. Thus,
the stratigraphic and geographic ranges of these species and genera can be determined. Second,
in conjunction with pre-existing information, the phylogenetic relationships of the various
arthropods in the Spence, Wheeler, and Marjum can be evaluated. These objectives will increase
our understanding of Cambrian biogeography and also the nature and topology of important
early episodes in animal evolution. Additionally, intensive taphonomic and microstratigraphic
study of three of the principal Burgess Shale-type localities will lead to a refined understanding
of the paleoenvironmental factors and taphonomic processes that controlled the preservation of
Burgess Shale faunas in the Cambrian, and will contribute to our understanding of why this type
of preservation is unique to the Cambrian. Due to the richness and significance of these poorlyknown
faunas, the excellent exposure across the study areas and the relatively low metamorphic
grade of mudstones hosting the soft-bodied faunas, this project also provides a rare opportunity
to address phylogeny, paleoecology, and preservation in Burgess Shale-type deposits in an
interrelated context.
Some of the faunas that will be studied are in collections housed at the University of
Kansas (KU), and they are accompanied by precise locality data. There is also an emeritus
professor at the University of Kansas, Dick Robison, with significant expertise in areas related to
this grant. Sue Halgedahl and Richard Jarrard, professors at the University of Utah, have also
agreed to make their extensive collections of soft-bodied, Cambrian Burgess Shale-type faunas
from Utah available to us for study; again, these are accompanied by precise locality data. Each
of these factors will greatly facilitate this proposed research.
In terms of broader impacts, this project will contribute to the training of two graduate
students, one at KU and one at the University of California, Riverside, who will participate in the
proposed research activities and attend scientific meetings. Through the RUI program, this
project will also contribute to the field and analytical training of multiple undergraduates from
Pomona College, an undergraduate-only institution and member of the Keck geology
consortium.